Conference on Infinite-Dimensional Analysis

This award provides funding to help defray the expenses of participants in the "Conference on Infinite-Dimensional Analysis" that will be held October 28-30, 2016, on the campus of Kent State University.

The objective of this conference is to bring the participants up to date on the latest developments in infinite-dimensional holomorphy, with special emphasis on the interplay between operator theory, the geometric theory of Banach spaces, spaces of multilinear mappings and polynomials, linear dynamics, and lineability and universality. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work. More details about the conference can be found at: http://www.math.kent.edu/~zvavitch/Infinite_Dimensiona_Analysis_2016/Main_Page.html